The Effect of Viscosity on Dislocation Tunneling and a Test of the Interstitialcy Model of Condensed Matter States

9319773 Granato Ultrasonic measurements are applied to two different topics. In the first case the effect of viscosity on dislocation tunneling through impurity pinning points is determined by comparing the ultrasonically found microyield stress in the normal and superconducting state in dilute aluminum alloys. The measurements build on results from a previous grant that showed dislocation tunneling occurring below , but not above, 0.5 degrees Kelvin. The second case involves a critical test of the interstitialcy model of condensed matter states by measuring the temperature dependence of the elastic constants of aluminum and other crystals just below the melting temperature by an electromagnetic acoustic transformation technique (EMAT). Positive results for an unusual and unexpected effect would confirm a simple, quantitative easily visualized model according to which liquids and amorphous materials are crystals containing a few percent of self-interstitials. %%% Knowledge obtained from this research is important to the understanding of material properties in superconductors, amorphous materials and glasses. ***